Integrating Nanotechnology and its Environmental and Health Implications to Undergraduate Engineering Education

Engineering Other (59)

This project is developing learning materials for upper level undergraduate courses in nanotechnology. The materials are being organized into modules developed along life cycle assessment principles. The benefits and potential impacts involved in the raw material extraction, synthesis, integration, use, and disposal of nano-materials are being covered with modeling of their fate and transport into the surrounding environment. This is enabling students to understand the complex relationships between each life cycle stage of nano-materials and the surrounding human and environmental systems.

Student learning outcomes include developing analytical and synthesis skills through exposure to fundamentals of nanotechnology and nanoscience and solving nanotechnology related problems in the form of case studies. Both formative and summative assessment methods are being used to evaluate the learning outcomes and are documenting the success of the courses and associated pedagogical model.